Relativistic Heavy Ion Collision Studies at RHIC and the LHC

This is a three-year program funded by the NSF primarily to carry out
experiments with relativistic heavy ion-collisions, i.e. head-on
collisions of heavy nuclei such as gold near the speed of light. The
principal investigators are T. J. Humanic and M. A. Lisa of the
Department of Physics at The Ohio State University. The main goal of
these experiments is to obtain evidence that collisions of this type
produce a phase transition from normal nuclear matter into a new phase
of matter made up of a large volume of free quarks and gluons (the
constituents of protons and neutrons) called Quark Matter. This phase
transition has been predicted by quantum chromodynamics (QCD), which is
the theory that describes the behaviour of quarks and gluons in nature.
Thus far, there have been no disagreements between the predictions of
QCD and experiment, so finding Quark Matter would be a major test of
this theory. Quark matter is of additional interest since it is thought
to have been the state of the universe several microseconds after the
Big Bang and may exist today in nature at the centers of neutron stars.
Relativistic heavy ion collisions could provide a method to produce
Quark Matter in the laboratory since it is necessary to create a very
dense and hot region within nuclear matter in order for the initiation
of this phase transition. In addition, because heavy ions are
relatively large compared with the size of a proton the collision is
extended in time, hopefully allowing the system enough time to reach
equilibrium so that the Quark Matter state is well developed. Thus, to
study this phenomenon one prefers heavy ion collisions at the highest
possible energies and with the heaviest ions available. In the present
proposal heavy ion collisions will be studied with gold on gold
collisions at the Relativistic Heavy Ion Collider (RHIC) at Brookhaven
National Laboratory (BNL) and lead on lead collisions at the Large
Hadron Collider (LHC) at CERN in Geneva. RHIC, which started delivering
beams in Summer 2000, is the highest energy heavy ion accelerator now in
operation. In order to look for signatures that a phase transition to
Quark Matter has taken place, one must study the properties of the
particles produced in the collisions, such as particle momenta and
multiplicities of each type that can be detected (e.g. pions, kaons,
protons, and more exotic particles). This will be done at RHIC using the
large acceptance detectors of the STAR experiment, which can sample most
of the interesting particles per collision. The information obtained in
this way can be used to determine, for example, the physical size of the
interaction region (using two-particle interferometry), the temperatures
reached in the collisions (from particle momentum distributions) and
exotic particle production such as strange baryons. In addition,
preparations will be made to study Pb+Pb collisions at even higher
energies at the LHC with the ALICE experiment. The LHC will provide
beams 30 times higher in center-of-mass energy than RHIC, i.e. cosmic
ray energies, starting in 2007. Thus, the energy dependence of Quark
Matter production can be studies and the search for as yet unpredicted
phenomena can also be pursued.

Besides the intellectual merit described above, there are broader
impacts to society of this proposal in the areas of education,
technology and computing. Since undergraduate students, graduate
students and postdoctoral researchers will play key roles in this
project, training will be provided to these groups in how to carry out
research in large collaborations and in general problem solving skills.
Participation in particle detector development and testing will enhance
new technologies which can be adapted to both commercial and government
use. Since this research requires large-scale computing in order to
acquire and analyze data on the teraflop an terabyte scale, new methods
in information science, such as computing grid systems, will be
developed which can enhance the computing power of society as a whole.